Integrated Circuit Timing Simulation

The research focuses on type of circuit timing simulation, which can do variable accuracy analysis (at the discretion of the user). This approach to timing simulation has potential to provide design engineers with faster and more accurate simulation of circuit design. The research is on-going work on an integrated circuit timing simulator prototype called SPEC82. This prototype simulator is tree/link based, event-driven and uses charge and energy conserving table models for device characterization. It has shown encouraging results in speed and accuracy of simulation. Research is in improving capabilities of SPEC82 through accommodation of more devices, generalized macro- modeling, spread time-constant control, and adaptive error control. Benchmark tests will be run on the improved SPEC82 simulator.